Ceramic Based Multi-Site Electrode for Electrochemical and Electrophysiological Recording

The major goal of these studies is to design and develop ceramic- based multisite microsensors. At the present time, microsensors are being used primarily in the area of neuroscience to study neurochemicals and to measure the electrical properties of brain cells. The advantages of microsensors are the abilities to rapidly (<lsec) measure molecules or electrical potentials on small spatial scales (microns) to understand biological signaling processes directly. In addition, such methods can be miniaturized to be used directly in the field. Current designs of such microsensors have been expensive, fragile, subject to failure and limited in their scope of applications. We plan to develop a new type of sensor based on the concepts of the micromachining of ceramic. The resulting sensors may be cheaper to manufacture, stronger, and more inert, and capable of measuring chemicals and electrical potentials at the same time. The potential uses of these microsensors for chemical measurements may be extensive. It is possible that low cost ceramic-based microsensors can be used to measure chemicals in a variety of situations such as brain recordings, used to control fermentation processes, for determinations of the purity of drugs, for determining harvest time information regarding fruits and vegetables, and they will likely have a variety of additional biological sensing applications. These microsensors could have a global impact on neuroscience, agriculture, industry, government and private labs, and the general public.